Lower-Hybrid Waves Excited by the Electron-Ion Hybrid Instability

The proposed research is the first laboratory study of the electron-ion hybrid instability driven by a shear in the cross- field ion drift. The objectives are to (1) excite the EIH mode in the two parameter regimes assoicated with their laoratory device, (2) determine the dependence of the frequency and wave vector spectra on shear parameters, (3) characterize the ion heating induced by EIH waves and its saturation mechanism, and (4) to determine the influence of introducing a second ion species, positively and negatively charges, on items 2 and 3. These experiments are relevant to the interpretation of the dynamically intense geomagnetic activity that arises at the edges of auoral arcs and in black aurora.